Collaborative Research: Glacial Marine Stratigraphy in the Eastern Ross Sea and Western Marie Byrd Land, and Shallow Structure of the West Antarctic Rift

This award supports a collaborative marine geological and geophysical project between the University of California, Santa Barbara, and the University of Alabama to study the glacial and tectonic history of the eastern Ross Sea and the Marie Byrd Land margin of West Antarctica. The goals of the project are (1) to conduct seismic imaging and piston coring to begin unraveling the history of the West Antarctic ice Sheet as recorded in the recent sediments of the continental shelf of the region, and (2) to acquire seismic images of the acoustic basement beneath the Cenozoic glacial deposits toward an understanding of the relationship between rift structure of the continental crust and Cenozoic glacial deposits of the region. This research will result in bathymetric, structural, sediment isopach, gravity and magnetic maps of the eastern Ross Sea and the Marie Byrd Land margin. This information will be integrated into an interpretation of the major glacial and structural features of the region. This project will result in a better understanding of the glacio-marine stratigraphy and glacial history of the eastern Ross Sea and Marie Byrd Land margin and, consequently, it will represent a significant contribution to the goals of the West Antarctic Ice Sheet initiative.